A Variable Rate Real-Time Speech and Video Coder for Video Teleconferencing from 19.2 to 64 kbps

SBIR Phase II Proposal ISI-9401615 PI: Craig Richardson Atlanta Signal Processors, Inc. "A Variable Rate Real-Time Speech and Video Coder for Video Teleconferencing from 19.2 to 64 Kbps" This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This Phase II project involves design and development of a real-time video and speech encoder/decoder system that combines a high quality, low bit-rate full color video coder with a high quality, low bit-rate, variable rate speech coder. The target bit-rates for the combined video and speech range from 19.2 kbps to 64 kbps for frames of size 176 x 144 and 352 x 288 at 15 and 30 frames per second. The real-time hardware environment is based on a multi-processor configuration of digital signal processors.